RUI: Energy Transfer in Collisions of Highly-Excited Atoms

Professor Smedley will measure energy transfer between excited atoms using time- and wavelength-resolved fluorescence spectroscopy. The emission profiles will reveal the delicate interplay between collisional and light field interaction when atoms absorb light energy in the presence of perturbing partners. This project will be carried out within the context of the RUI (Research at Undergraduate Institutions) program and will expose several undergraduates to a physics research environment.